Critical Adsorption in Finite and Semi-Infinite Systems: An Evanescent-Wave Ellipsometric Study

Experiments are proposed on the details of vapor-adsorption at the free surface of a binary liquid mixture. On approaching the liquid critical temperature, the adsorption also becomes "critical"; its "profile" (CAP) has been the object of much research, both theoretical and experimental, in recent years. There are numerous practical consequences such as the particular behavior of colloids and of liquid mixtures in random media. They propose to examine some of the important questions re CAP using the sensitive technique of evanescent-wave ellipsometry (EWE).